Correlations and Clustering in Seismicity Observations

9526814 Rundle This research is to study the non-linear physical properties of earthquake occurrence. A variety of recent as well as older observations indicate that clustering in space and time is a fundamental property of seismicity observations. Because forecasting of earthquakes has been based on temporal regularity (for example, seismic gaps), the nature of the space-time clustering of earthquakes must be understood before any meaningful forecasts can be made. Earthquake clustering is due to non-linear effects and interactions between fault segments, and these factors must be understood. This work will test a variety of nonlinear models and simulations that are known to produce clustering in space and time through comparison with actual seismic data. This research is a component of the National Earthquake Hazard Reduction Program. *** ??